Investigation into Tsunami Wave Height Probability Distribu-tions

This research makes an innovative application of the statistics of extreme values to predict tsunami wave heights. The approach has been applied in recent years, with good success, to predict floods and storm waves. The application of this methodology to tsunami research is new. The study will specifically resolve the following three significant issues in tsunami prediction: calculating the symptotic distribution that is appropriate to estimate extreme tsunami wave heights, finding the correct approach to use the historical record to predict tsunami parameters, and evaluating the impact of uncertainties in predicting the 100- and 500-year tsunamic wave heights.